SSC: Skill Summer Science Camp for American Indian Students

SSC-9353256 South Dakota School of Mines and Technology Rapid City, SD McCulloh, Sara and Weyland, J. A. "Skill Summer Science Camp for American Indian Students" The Skill Summer Science Camp Program of the South Dakota School of Mines and Technology will be a 4-week residential math/science program for American Indian students. Fifty American Indian students per summer will be selected from South Dakota's nine Indian reservations to participate each summer. The goals of the Skill Summer Science Camp are to provide a foundation for a lifelong interest in science and mathematics for all participants and to encourage the consideration of SEM as possible career choices. Students entering eighth grade will be selected based on their application and teacher's recommendation/commitment to assist with a Science Fair project. The curriculum uses a hands-on discovery approach, collaborative learning work groups and interdisciplinary curriculum. The disciplinary focus is on "Mathematical Problem Solving in Physics" with Dr. Jack Weyland. Basic Skills Research Careers Mathematical Problem Science Fair Robotics Solving in Physics Project Development Career Seminars Computer Labs Geology/Paleontology Communications Math Applications In order to provide intensive role model/mentor experiences, the program staff/faculty includes over 19 SDSM&T faculty and AISES students, and tribal school/college faculty to work with the SSC students. Evening programs will include astronomy, Project Wild (environmental activities from the Game, Fish and Parks Dept.), field trips and cultural activities. parents will be invited to participate in the Family Math programs each week as well as the geology field trip, science fair and graduation. School year follow-up will include: bi-monthly newsletters, invitations to Saturday seminars, and a Skill SSC Alumni Reunion during the Hi gh plains Regional Science Fair.